Within the Brain

The Lawrence Hall of Science proposes to develop two 1400 square foot interactive exhibitions based on the latest research findings on the structure and function of the human brain; one for permanent display at the Hall, and one for circulation to 12 science museums over a five year period. The exhibition will use large scale models and equipment from two television programs on the brain. Substantial input from scientists and psychologists will be combined with the educational expertise of curriculum development, museum, and design staff from the Lawrence Hall of Science to create the exhibitions. Visitor and school related curriculum materials will be developed, including a video library and an auditorium show for large group school use. The Lawrence Hall of Science has more than 300,000 visitors per year and is a major science education research and development facility; the twelve host museums will reflect museums in both large and medium sized cities well distributed geographically. More than three million people will view the exhibits over a five year period. The topic is timely, the treatment substantive and educational, and the qualifications of staff and advisors high. The re-use and relationship to a major television series, "The Brain", is an ingenious and effective strategy. The Lawrence Hall of Science is matching the National Science Foundation contribution with comparable private funds. A 24-month FY87 award of $ is recommended.